Actin May Be Involved in the Structural Basis of Tactile Learning and Memory in Octopus

Dr. J. David Robertson and his colleagues intend to investigate the process of learning and memory using Octopus vulgaris. They hypothesize that active extension of filopodia-like cytoplasmic processes analogous to microspikes of neuronal growth cones is a primary event in learning and memory. In Octopus brain the posterior buccal lobe is essential for tactile learning and memory. Dr. Robertson expects actin contractility to be essential to learning and memory. Cytochalasin B disrupts actin causing filopodia to collapse reversibly in growth cones; the same should happen in brain tissue. Dr. Robertson has tested this hypothesis by injecting cytochalasin B into the posterior buccal lobes of the brain of Octopus. As predicted, the cytochalasin B prevents tactile learning reversibly without affecting memories previously consolidated or affecting visual learning and memory. Dr. Robertson will test the hypothesis through investigation of the posterior buccal lobe by electron mycroscopy to enumerate filopodia-like cytoplasmic processes in synaptic regions of normal and cytochalasin B-injected neuropils. He shall record electrically from neurons in posterior buccal brain slices and microinject them with fluorescent dyes and horseradish peroxidase for study by epifluorescence light microscopy. Dr. Robertson also plans to study the distribution of brain actin by using myosin S1 decoration and by determining the distribution of radioactively labeled cytochalasin B using autoradiography.